Paleomagnetic Reversals Records: 1. Comparison of ODP Leg 157 Records with Lava Records on Gran Canaria; 2. Analysis of Reversal Records; and 3. Magnetostratigraphy of Gran Canaria

9628647 Fuller The PIs propose to analyze global magnetic reversal records that they have compiled in the "Reversal Atlas." The work will include the development of a new spherical harmonic analysis and its application to reversal records and secular variation. ***